Studies of the General Circulation of the Ocean

In this project, the PI will continue development of a theoretical capability for global synthesis of the large ocean data sets to be obtained during the World Ocean Circulation Experiment (WOCE). This capability consists of a series of inverse models, ranging in scale from the North Atlantic to global that will eventually be able to assimilate and synthesize data of many different types, and to predict the state of the ocean described by the data, producing estimates of fluxes of heat, water, mass, momentum, and energy.